Anthropological Field Research on the Giant Lemurs and Associated Fauna of Northern Madagascar

The purpose of this research is to recover and describe primate (including human) and other vertebrate fossils from Madagascar that will reflect new knowledge about a major wave of extinction that occurred there between about 800 and 2000 years ago. Fossils will be recovered from caves in the Ankarana Range of Northwestern Madagascar where prior short expeditions have indicated that giant lemurs and other fossils are abundant. The fossils will be prepared and analyzed anatomically in order to understand some of the extremes of adaptation within the Order Primates. The disappearance of certain fossil birds and mammals from the fossil record in Madagascar has traditionally been thought to have been caused by human intervention rather than by environmental change. This study will provide evidence about the cause of extinction and help to distinguish between these two competing theories of extinction on Madagascar.